SBIR Phase I: VCSELs On Silicon: CMOS Compatible Epitaxial Mesas On Large Silicon Wafers

This Small Business Innovation Research (SBIR) Phase I project proposes to
develop a revolutionary, yet simple and well-designed technique for the cost effective
deposition of compound semiconductor epitaxial material mesa arrays on large (300mm)
silicon wafers. The subsequent processing steps integrate smoothly with silicon CMOS
(Complementary Metal-Oxide-Semiconductor) processing similar to the current SiGe
(Silicon Germanium) BiCMOS (Bipolar CMOS) technology. Previous attempts at the
integration of III-V materials with silicon have had limited success due to many factors
including high cost, CMOS incompatibility, small wafer size, and a lack of technological
and market readiness. In contrast, the proposed solution is very cost effective, and it
builds on recent technological progress in advanced materials deposition and handling.
The vehicle chosen for the demonstration of this technology is the fabrication of high
speed VCSEL (Vertical Cavity Surface Emitting Laser) arrays on silicon. The immediate
application is in high speed interconnects for computer systems and peripherals including
next generation USB (Universal Serial Bus) cables.

The broader impact/commercial potential of this project lies in the following
aspects: This technology can merge the advanced compound semiconductor materials
with the superior processing and efficiency of silicon ICs. This will end years of isolated
development and will bring new electronic and optoelectronic device capabilities to
mainstream silicon processing. In electronics applications, high speed and high power
transistors based on InP, and GaN device technologies will be processed with silicon
CMOS on large wafers. This will integrate advanced analog and power functions with
silicon CMOS based control and processing. In addition, it will offer an alternative route
for the continuation of performance enhancement in silicon ICs independent of feature
size reduction. In optoelectronics, the integration of GaAs and InP based optical emitters
and receivers on silicon will allow the miniaturization and cost reduction of optical
transmitter and receiver modules. The seamless integration of optical and electronic
functions on silicon chips will lead to faster interconnects and will significantly reduce
the cost per bit in fiber optic signal transmission.